Studies of Knots, Links, and Other Spatial Configurations

The subject of this proposal is to study the topology, geometry,
combinatorics, and statistics of such spatial configurations as knots,
links, braids, and polygonal simple spatial curves. Five specific topics
and related research projects are proposed. They range from the knot
classfication problem, a folding problem of polygonal simple curves in the
3-space, a possible statistic pattern of the roots of the Jones
polynomial, some problems about representations of braid groups, and the
study of higher order knot signatures. Some of the problems addressed in
this proposal are major open problems in the field of low dimensional
topology. The folding problem of polygonal simple spatial curves addressed
in this proposal aims at showing that there is essentially no topological
obstruction for the protein folding problem in molecular biology.

The phenomena of knotting and braiding are fundamental in 3-dimensional
spatial structure. A mathematical description and understanding of such
phenomena is essential to our knowledge of the natural world, and is the
major goal of the study of low dimensional topology. The discrete methods
of analyzing 3-dimensional spatial structures developed in the study of
low dimensional topology are proven to be significant to many other
branches of science and applied research, particularly physics, molecular
biology, and computer graphics. In this proposal, a major effort will be
spent on solving an abstract version of the protein folding problem, which
is a central problem in modern molecular biology, using these methods.
These methods are also fundamental in the development of a student's
ability to visualize and analyze 3-dimensional configurations.